Random Processes and Fields: Discrete Approximations, Special Wavelet-Based Decompositions and Simulation

The principal investigator studies special wavelet decompositions of
random processes and fields. These representations have a multi-resolution
structure and share other nice properties of standard wavelet
decompositions. In contrast to the standard case, however, the high
frequency (small scale) terms in special wavelet decompositions have an
elementary stochastic structure. Random processes and fields are
considered under a wide range of assumptions: Gaussian, Gaussian
subordinated, stable, stationary, self-similar, some non-stationary, and
others. In addition to establishing and understanding special wavelet
decompositions, questions regarding their use in simulation, analysis and
modeling are also addressed.

The project adds to the recent growth of the multi-scale
(multi-resolution) approach where observed phenomena are considered at
different scales (resolutions). This approach where wavelets play a
central role, has found successful applications in numerous fields such as
medical imaging, turbulence, de-noising, astronomical and Internet traffic
data analysis. The goal of the project is to develop a new
multi-resolution framework that is suitably adapted to random phenomena.
Despite some progress, such multi-resolution framework has been missing at
a fundamental level. The developed framework should provide novel analysis
tools and conceptual perspectives, for example, establish new connections
between models in discrete and continuous times, shed light on simulation,
which has become an indispensable tool of any scientific research, or be
useful in modeling through the multi-scale approach. The project should
also be of direct interest to and enhance ties between researchers in many
areas of Science such as Applied and Pure Mathematics, Physics, Signal
Processing, Probability and Statistics.